CPMSA: "Comprehensive Partnerships for Minority Student Achievement"

The Winston-Salem/Forsyth County CPMSA Project addresses its purpose: to develop, provide and make systemic a high quality math/science educational program which expands access, participation and achievement of K-12 minority students who are under-represented in science, engineering and math pipeline. Project goals are: to significantly increase K-12 student participation in high interest mathematics and science activities; to significantly increase minority K-12 student participation in gatekeeper courses for math, science, engineering and technology college preparation; to significantly increase minority college student majors in SMET fields; and to put in place a systemic reform of curriculum, instruction, and community involvement which facilitates ongoing realization of the first three goals. Project objectives are: (a) to provide a broad scope of programs which provide weekly and summer opportunities for all minority students and parents to participate in science and mathematics activities in their neighborhoods, in their schools and at project collaborators' facilities; (b) to strengthen the capacity of the teachers in the delivery system to develop and deliver the high interest and motivational activities; (c) to motivate minority students and their parents/guardians with opportunities to participate in high interest activities; (d) to mentor the minority students with university and industry faculty entering the gatekeeper courses, to encourage their successful participation in the gatekeeper courses and continuation with those courses; (e) to evaluate the students and monitor their progress through the project each year; (f) to demonstrate the ability to replicate and continue the project's strategies and interventions which correlate significantly with reaching project goals--statewide, regionally, and nationally. Project partners collaborating with Project JUST are: Winston- Salem State University; Wake Forest University; SciWorks (The Science Cen ter and Environmental Park of Forsyth County); The Urban League; and the YMCA. Each collaborating partner will provide direct services to students of the targeted project population: approximately 14,000 K-12 African-American students living in the city's designated Enterprise Community, a 15 square mile section from which most elementary school student are bussed to achieve racial integration in 32 schools. Project activities will be provided: in neighborhoods, through partnering with the housing authority and churches; at all K-12; at Winston-Salem State University; at Wake Forest University; and at SciWorks. Project activities will involve mentors, through partnering with professional SMET associations and with local businesses (e.g., RJR Tobacco). Project activities will include students' family involvement. School system curriculum/instructional reform of K-12 science and math will be achieved through teacher driven staff development, provided by strong science/math teacher and designed to be systemically accessible through site-based expectations and scheduling. ***